RUI: Analytical and Numerical Studies of Relativistic FluidFlows Accreting onto a Magnetized Schwarzschild Black Hole

This research employs analytical methods and numerical simulations to investigate (in the context of relativistic astrophysics) the accretion processes around a black hole immersed in an external magnetic field. The black hole's exterior spacetime is modelled by a solution of the combined Einstein-Maxwell equations (the magnetized Schwarzschild metric). Equipotential surfaces and Von Zeipel cylinders of relativistic rotating thick disks are analytically investigated. Computer algebra systems will be used to tackle some of the cumbersome calculations expected in this part of the project. A numerical approach is also needed in regions where the analytical method fails (outside the closed potentials). This numerical approach involves converting the relativistic hydrodynamic equations into finite difference schemes to be solved on a supercomputer. Image processing techniques and color images will be necessary to interpret the numerical output. One important aim of the project is to involve undergraduate science majors in research experiences. This project will provide talented students with the opportunity for planning, carrying out, and reporting scientific research. Moreover, by using advanced computational tools, they will develop computing skills needed for their future advancement in science or engineering.